Research Experience for Undergraduates: Modeling, Analysis,and Control of Manufacturing Systems and Processes

9322142 Sharifnia This Research Experiences for Undergraduates project will involve undergraduates with the application of the dynamic systems, control theory, and operations research to important manufacturing engineering problems. Specific research areas include design and operation of manufacturing systems, robotics, and manufacturing processes. The research projects will address modeling, analysis, control, and performance evaluation aspects of these systems or processes. ***